Mathematical Sciences: 1994 John von Neumann Symposium "Quantization and Nonlinear Wave Equations"

9400413 Maxwell The American Mathematical Society requests a grant in the amount of $20,000 for participant support of the first quadrennial John von Neumann Symposium, to be held in the summer of 1994. The supplemental funding from the NSF will be used t support travel and Nonlinear Wave Equations", was selected by the 1993 AMS Committee on Summer Institutes and Special Symposia. The Symposium will provide the opportunity for cross-fertilization between the classical theory of nonlinear wave equations on the one hand and operator algebra on the other. This is most appropriate given von Neumann's deep and central interest in the relation between operator algebra and quantum mechanics and the announced goal of the Symposium to treat topics of emerging significance that are likely to underlie future mathematical development. Members of the Organizing Committee for the 1994 von Neumann Symposium are: Haim Brezia (co-chair), Irving Segal (co- chair), William Arveson, Robert Blattner and Thomas Branson. The 1994 John von Neumann Symposium will be held during a one week period in June, 1994, in the greater Boston area.